Research Equipment Grant: High-Frequency Data Acquisition and Signal Process System for In-Process Abrasive Machining Damage Assessment Using Acoustic Emission

This grant is to purchase a physical acoustic high-frequency data acquisition and signal process system for the investigation of in-process abrasive damage assessment techniques using acoustic emission. The equipment will enable the research conducted by the Abrasive Micro-Machining Center at Kansas State University to obtain acoustic emission data well beyond the audible range, thereby facilitating efforts to analyze the full range of data generated by the acoustic emission signals. The system will be used to investigate innovative methodologies for identifying the acoustic emission signatures associated with workpiece subsurface damage in conventional and non-conventional abrasive process of ceramics and steels and to develop acoustic emission methods for in-process damage assessment and control. The acoustic emission data acquisition and signal process system substantially enhances the research capability of the Abrasive Micro-Machining Center at Kansas State University for understanding subsurface damage in conventional and non-conventional abrasive process of ceramics and steels. It is also valuable to the development of acoustic emission methods for in-process damage assessment and control.